Purchase of a 300 MHz NMR

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to modern NMR spectroscopy is essential to chemists and biologists who are carrying out frontier research. The Department of Chemistry at Marquette University will use this award from the Chemical Instrumentation Program and the Instrumentation and Instrument Development Program to help acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include: 1) Protein control of heme reactivity 2) Vibrational spectra of hemoprotein model compounds 3) Models of assimilatory and dissimilatory nitrite reductase 4) Photochemistry of unsaturated organosilanes 5) Organic synthesis via organometallic methodology 6) Photochemical and photophysical studies of polypyridine complexes of Ruthenium (II).